S-STEM Hub: Translating Undergraduate Success into Graduate Opportunity

This S-STEM research hub will contribute to the national need for well-educated scientists, mathematicians, engineers, and technicians by exploring how institutional factors impact the graduate aspirations, readiness, and success of low-income STEM students at research-intensive universities. There is some evidence that low-income students postpone or choose not to pursue graduate education at a higher rate than their peers due to the costs and other challenges. While many S-STEM projects have demonstrated strong undergraduate outcomes, less is known about how these practices can be adapted and scaled to support graduate opportunity. The project will engage researchers, institutional leaders, and other stakeholders to address this broad question.

The overall goal of this Scholarships in STEM research hub is to increase the knowledge base on academically talented, low-income graduate students. There is a significant national need to grow the STEM workforce and nurture key talent that will ensure economic competitiveness and provide domestic leadership across critical sectors. The hub will conduct multi-campus research to examine how research universities can reduce financial, structural, and psychosocial barriers that shape graduate pathways. Project research will be coordinated across five strands that are critical in the undergraduate-to-graduate continuum: (1) Advising & Graduate Readiness; (2) Mentoring, Identity, & Belonging; (3) Transfer & Community College Integration; (4) Institutional Ecosystems; and (5) Graduate Workforce Preparation & Career Alignment. This project is funded by NSF’s Scholarships in Science, Technology, Engineering, and Mathematics program, which seeks to increase the number of academically talented, low-income students with demonstrated financial need who earn degrees in STEM fields. It also aims to improve the education of future STEM workers, and to generate knowledge about academic success, retention, transfer, graduation, and academic/career pathways of low-income students.